RUI: Quantum Field Theories Under External Conditions

It is believed that a strongly correlated electron system in two dimensions can be described by an effective field theory of particles with fractional statistics called anyons. One important reason for the interest in models with such an unusual statistics is the claim that anyons could play a basic role in high-temperature superconductivity. Although anyon superconductivity has been the subject of intense research in recent years, problems still remain related to the anyon response to an applied magnetic field at finite temperature. This project will address these questions. Their solution will contribute to a better understanding of the fundamental properties of this system and to its relevance in condensed matter. The second part of this project will be dedicated to the investigation of large magnetic fields in gauge theories. It is expected that the outcome of these studies will be relevant for cosmic phase transitions and will contribute to the explanation of the formation of electron positron peaks in heavy-ion collisions.